National Diversity Equity Workshops 2011

The primary activity of this award will be a workshop bringing together chemistry department chairs and social scientists to develop a better understanding of the underlying causes for the continued reduced representation by of underrepresented groups in academia and to investigate effective practices to counteract this trend.

In order to maintain its global competitiveness, the United States must work vigorously to tap neglected pools of intellectual talent. This is increasingly important as the country's demographics become increasingly diverse. The workshop will help chemistry departments to evolve into organizations that draw upon all of the intellectual capital of the country.